Dissertation Research: Parent/Adult Conflict: The Effect of Different Amounts of Parental Care on Survival of Offspring in Guanacos

The project investigates the phenomenon of how juveniles influence their parents into providing them with more, that is, more time (in the family group), more care and attention (especially from the mother and socialization with other group members), more protection (from the aggression from the father and the threat of predators), and more food (nursing from the mother and male's allowance of young to feed within his area of preferred forage). The investigation is also trying to assess the benefits (longer life, greater reproduction, etc.) of this parental manipulation for the juveniles. Study animal: the South American guanaco (Lama guanicoe) in Torres del Paine National Park on the Patagonia of southern Chile.